Collaborative Research: Characterization of Nanosensor Field-Assisted Detection of Biomarkers at Ultralow Concentration

1067502/1064574
Liu/Hu

This proposal aims to quantify the biomarker detection process and solve the puzzle of
biosensor detection at ultralow concentration (femto molar or fM), which is of vital importance for
early diagnostics of diseases. Despite the significant progress achieved in biosensors in recent
years, the fundamental understanding of biosensor detection process and bio-nano interfacial
interaction at ultralow concentrations is very limited, which has hindered the interpretation of
experimental results as well as sensor design. One example is the large discrepancy in
detection time between experimental demonstration of Si nanowire sensor and the theoretical
diffusion-reaction model. The goal of this proposal is to resolve the puzzles of biomarker
detection process at ultralow concentrations and explore possible contributions from
electrokinetics to detection speed acceleration through a novel multiphysics
computational model with verification by an ultrasensitive bio-FET sensor. The proposed
research will not only advance the molecular-level understanding of the biomarker-nanosensor
interface, but also help design lab-on-chip devices for molecular transportation and diagnosis,
e.g., early cancer diagnosis by detecting protein at ultralow concentrations. We will provide a
physical and statistical interpretation of fM nanosensor detection process and explain the three
orders of magnitude difference in experimental and theoretically predicted detection response
time. The objectives of the proposed work are:
(1) Develop a Brownian adhesion dynamics model for biomarker detection process and perform
stochastic analysis of real-time detection results.
(2) Characterize how internal or external electrokinetics such as electroosmosis flow,
electrophoretic and dielectrophoretic force can potentially change biomarker diffusion
dynamics, and enhance biomarker detection at ultralow concentrations.
(3) Benchmark four nanosensor platforms in terms of limits on detection sensitivity and
response time and suggest new sensor designs for faster detection.
(4) Validate the model prediction through designed biosensing experiments by novel bioFET
nanosensors with single molecule detection capability.
(5) Provide a prediction and evaluation tool to help design nanosensors for optimal performance.

Intellectual merits:
1. Statistical insights to the nanosensor detection process will be provided through a Brownian
adhesion dynamics approach, which cannot be achieved by the commonly used continuum
diffusion-reaction approach.
2. Multiphysics modeling are applied for the first time to study how various inner and external
fields might accelerate the detection process, thus provide new design guidance for faster
detection. The new design and modeling results will be evaluated through novel Si nanowire
bio-FETs, which have single molecule detection capability that enables accurate and stable
quantification of binding dynamics at ultralow concentration for the first time.
The ultimate goal of the proposed work is to help develop novel field-assisted approach to
enhance detection capability: concentrate biomarkers near nanosensor, increase binding rate,
improve sensitivity, and shorten response time. An optimized testing platform will be the final
outcome of this research.

Broader impacts:
The proposed multiphysics simulation-based method will provide a rigorous mathematical
model of biosensing at ultralow concentration. Results of this work will pave the way toward new
biosensor design. The computational tools developed from the proposed research will be shared
within the research community and subsequently aid in addressing other important bio-sensing
issues that cannot be explored systematically by experiments alone. The education plan will
increase the awareness among high school teachers and students of the potential biomedical
applications of nanotechnology, to advance understanding of nano-bio interfacial phenomena for
students at all levels, and to increase minority participation in science and engineering.